Red-Light-Driven Energy Transfer Catalysis with Persistent Organic Radicals

In this project, Professor Andrew Pun of the Department of Chemistry at the University of California San Diego is developing new materials and methods to use light to drive chemical reactions more efficiently and sustainably. Current methods often rely on rare and expensive metals and high-energy ultraviolet light which can be inefficient and difficult to use in large-scale or in biological settings. This research explores an alternative approach using specially designed organic molecules that can harness low-energy light to drive chemical transformations. By doing so, the project aims to reduce costs, improve safety, and enable new applications of light-driven reactions such as industrial-scale chemical production and targeted medical treatments. In addition, this work will support training opportunities for students, foster collaborations with industry, and help communicate scientific advances to the broader public.

This project investigates persistent organic radicals as a new class of photocatalysts for red-light-driven energy transfer (EnT) catalysis. Conventionally used organometallic photocatalysts require high-energy excitation to access reactive triplet states after energetically lossy relaxation pathways. Organic radicals instead possess doublet excited states that can be directly optically accessed upon absorption of low-energy red light. These excited radicals can transfer this excitation to substrates via doublet-triplet energy transfer. The work will (i) establish proof-of-concept by replacing conventional rare-metal containing photocatalysts with persistent radicals in known EnT reactions, (ii) design and synthesize new radical catalysts with tunable photophysical properties to optimize catalytic efficiency and expand the number of transformations that can be performed, and (iii) uncover novel reactivity enabled by the unique spin and excited-state properties of these radical catalysts. Taken together, this work establishes a new photocatalytic platform based on doublet-triplet energy transfer, a previously unexplored mechanism that enables red-light activation, enhances selectivity, and eliminates the need for rare-metal catalysts.